Data Synthesis for the WOCE Indian Ocean and Atlantic Ocean Radiocarbon Programs

9986310

This project will extend the work of quality control and basic analysis
of radiocarbon data collected as part of the WOCE program, presently
being performed for data from the Pacific, to the Indian and Atlantic
Oceans. The intent is to provide a usable database of global
radiocarbon distribution to the general ocean science community and to
begin to apply this in an attempt to address a variety of physical
questions associated with ventilation, mixing and transport in the ocean,
particularly in the deep ocean.